The Consequences of Permafrost Degradation and Lant Water-use Strategies for Ecosystem Water Cycling

The Office of Polar Programs is providing travel support for Dr. Jessica Cable to visit the laboratories of Dr. Jeffrey Welker and others at the University of Alaska Anchorage. Dr. Cable intends to submit an application for a Postdoctoral Fellowship in Polar Research, and visiting her potential mentor will help her prepare her fellowship application.